An International Collaboration between the Glass Industries of Germany and the U.S.

This project is an international collaboration in glass research between the Industry/University Cooperative Research Center for Glass Research at Alfred University and the HVG- a glass research institute in Germany. This project implements an Industry/University/Government Cooperative Research Program between the United States and Germany. The ultimate objective of this joint effort is to couple the glass research expertise at Alfred University with the glass research institute in Germany to conduct Advanced Glass Processing research which will benefit the industry members in both Centers. The research projects at Alfred University will investigate the effects of Dealkalization on Surface-Related Mechanical Properties of Alkali Silicate Glasses, the Denist, Wetting Behavior of Glass in Controlled Atmospheres, and the Reflectometry Measurement of Thin Film Amorphous Films. The research projects in Germany will examine the impact of small chemical additions, basicity and oxidation state on the structure and properties of silicate glass melts. These factors strongly influence the glassmaking process. The Deutsche Forshungs Gemeinschaft (DFG) will fund $220,000 per year for three years for the research projects at HVG. The research projects at Alfred University will be supported by the New York State Legislature at $33,000 per year for three years, DOE (through the Westinghouse Savannah River Co..) at $195,000 for three years, and the Industry/University Center for Glass Research at Alfred University at $50,000 per year for three years. This project is being cost shared with Dr. Carole Ganz, Program Manager of the International Centers Cooperative Program, Division of International Programs. The Program Manager recommends Alfred University be awarded $55,000 for the first year for a three year continuing award.